Report on Visualization in Scientific Computation

On February 9-10, 1987, an advisory panel met at NSF to represent the views of the scientific community on issues arising from graphics, image processing, and workstations. The panel consisted of representative, prominent scientists who build or use sophisticated visualization tools in the conduct of their research. As a result of that meeting, the panel now wants to generate a report defining the field of visualization and detailing its uses in the discipline sciences (e.g. biology, physics, economics). The proposal seeks to support the generation of that report. The report will consist of two pieces: a written report and a videotape. The report will define the field of Visualization in Scientific Computing, its domain, personnel, and key canonical problems. The body of the report will be written by researchers from certain discipline sciences that need advances in the underlying sciences of visualization. The videotape will present exemplary computer-generated graphics of scientific simulations. The report brings together a sampling of hard scientific problems that await advances in visualization in scientific computing, from NSF-supported researchers and other agencies of government; and , it suggest some programs, policies, and technologies to meet those needs. The investigators hope to change the way that science gets done on advanced scientific computers, with implications for scientific productivity and national competitiveness